Advanced Techniques in Atomic Physics

The research to be continued will include continued effort on measuring the fine structure splitting of triplet helium, as well as Stark and Rydberg spectroscopy of helium excited states. The second major part of the work involves further study of the Stark effect in alkalis including experiments and calculations on radiative decay, electric field calibration, and the use of laser-slowed beams to enhance measurements on long-lived states. The third area of proposed work is in laser development, particularly diode lasers and LNA or YAP for the helium metastable line. The fourth part is continued theory and experimental work on the effects of spectrally broadened light on atomic coherence, particularly the Hanle effect. The fifth part is an extension of previous work in other laboratories of laser deceleration. Slow and cold atoms will be used as a tool for further research in atomic physics. The last major component of the research is the study of traps for neutral atoms, including both magnetic and optical. This award will include the consequential involvement of one or more promising undergraduates in a leading research group. The assignment of meaningful tasks to these students, and their participation in an active research environment will aid greatly in their career development.